Research Initiation: Free Surface Problems in Crystal Growth

This study concerns a fundamental investigation in thermal systems. Specifically, the unsteady, combined fluid flow; heat and mass transfer; and free surface problem will be analyzed with the objective towards an understanding of the manufacturing process for crystals grown from melt.